Computer-based Data Acquisition and Analysis in Physiology Laboratories for Hearing Impaired and Undergraduate Biology Students

Physiology laboratories using analog to digital boards and computers to obtain and analyze data are being designed for hearing-impaired students by emphasizing visual rather than written or verbal presentation of information. MacIntosh Plus computers with their visually based operating system will facilitate teaching hearing- impaired individuals. The laboratories will also have a major impact on women, who are 85% of the college population. Familiarity with computerized data acquisition and analysis is very important for students who aspire to become biologists. The college will provide 50% matching funds.